NSF Young Investigator

9357189 Somalwar This NYI award will support the research of a promising and accomplished young investigator. His research will include the exploration of fundamental symmetries in particle physics, including experiments with the neutral kaon system to study CP violation and CPT symmetry. ***